Geometric Analysis of Deformations of Finite Distortiion via Nonlinear PDEs and Null Lagrangians

Project Abstract: DMA 0301582

T Iwaniec, Syracuse University

Intellectual Merit.

Prominent advances in analysis will continue to
enhance both theory and applications. In this challenge, there is enormous
opportunity for contributions from geometric function theory and
nonlinear partial differential equations. Broadly speaking, this theory is
about weakly differentiable mappings which distort small circles in a controlled manner (finite distortion). It elevates all
the analytic and geometric spirit of holomorphic functions in the complex
plane to higher dimensions; domains of the Euclidean n-space or
Riemannian manifolds, Mappings of finite distortion owe much of their
importance to recent developments in
several fields of applied mathematics: continuum mechanics, nonlinear
elasticity, material science, composites with microstructure, crystals,
and so forth. However, in this proposal we focus on practical questions
only through mathematical formulations, sometimes without proclaiming
definite answers. We emphasize the fundamental role of the Jacobian
determinant and other nonlinear differential expressions, called null
Lagrangians, which have driven (over the past twelve years) a very
productive study of mappings with unbounded distortion. The present
knowledge of null Lagrangians will tell us something about the regularity
and topological behavior of those mappings. This also brings us closer to
the methods of harmonic analysis and nonlinear partial differential equations. However, we depart
from the earlier theories, which are governed by
uniformly elliptic systems, and move into the realm of degenerate elliptic
equations, where important new applications lie.

Broader Impact.

Hopefully this proposal gives some appreciation of the
diversity of applications and directions in which current research of the
PI is moving, as well as a glimpse of the substantial body of joint work
with young scholars. It is at this point where the proposed research meets
the broader impact criteria, such as: effective training and educational
materials, enhancing partnerships, participation of under-represented
groups from non-PhD granting institutions in the USA and abroad, women and
men.
The Principal Investigator plans to organize a conference at Syracuse to bring together
researchers in geometric function theory and in applied areas. The
proposed program reflects continued efforts of the PI to reach out
graduate students. In the final analysis, education is the path to
opportunities for countless individuals, and the mathematical community as
a whole is the beneficiary.